Statistical Computing in Undergraduate Psychology

The integration of statistical computing into the psychology curriculum is providing substantial improvement in the quality of instruction in statistics and methodology, and an increase in the quality and quantity of research being conducted by the psychology majors. A microcomputer laboratory is being established for statistical computing to be used predominately in three research courses designed as part of a recent curricular revision. The activities are increasing the student's understanding of science, and are contributing to the preparation of scientists and policy-makers who have a more sophisticated appreciation of the research process.